Principal Investigator and Informational Meetings on the NOSS (Networking of Sensor Systems) Focus Area

The proposal is about organizing a PI meeting and an informational meeting for the NeTS focus area on Networking of Sensor Systems. The PI meeting will provide PIs with an opportunity to share their research results and experiences with their colleagues. The informational meeting will help potential PIs to get background information on the focus area and on the state of sensor systems research.